Artificial Intelligence Enhanced Instruction for Mastering Statistical Uncertainty

This Level 1 IUSE ESL project from California State University, Fullerton aims to serve the national interest by exploring how Artificial Intelligence (AI) tools can be used to support student reasoning in undergraduate statistics courses. There is significant research about how interactive classroom technologies can support students’ conceptual understanding. As AI usage becomes more widespread, however, it is important to distinguish how AI-based supports perform relative to other established, non-AI tools. This project will explore this important question by implementing two matched instructional modules in high-enrollment general education statistics courses.

Current research highlights the potential risks and rewards of AI use in undergraduate STEM courses. Using AI tools to support and guide, instead of replace, student thinking can be a powerful approach to strengthen student learning and understanding. This project will isolate the effect of AI-supported learning opportunities by comparing student approaches and outcomes on two nearly identical course assignments. The versions will differ only in the form of support provided, either guided, non-answer-giving generative AI prompts or non-AI scaffolds embedded in course materials. Data streams will include surveys, pre/post course, assessments, in-class quizzes, and end-activity reflections. An experienced project evaluator will provide formative and summative feedback over the life of the project to strengthen implementation and progress towards project goals. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.